NSF Scholars Program

This project is designed to recruit talented students with limited financial resources, to offer support and programs to help these students complete their degrees in a timely manner, and to encourage the students to continue to employment or a higher degree. The goals and objectives which extend quality programming and support services include (a) an aggressive recruitment of women and minority students, (b) a comprehensive system of orientation, and (c) internships, mentoring, and job placement programs. A cluster approach to scheduling promotes small group and peer interaction. To enhance the educational experience, students are attending professional seminars in their program area. A special arrangement with the New Jersey Institute of Technology provides students with a smooth transition to baccalaureate studies. The added dimensions of academic support and work experience promise to produce students who can also easily transition from college to the workplace.